Conference: Energy Landscapes of Proteins, Glasses and Clusters: Dynamics, Folding, Function and Prediction, to be held April 1-5, 2001 in San Diego, CA

Brooks, III Charles L.
MCB-0091839

Energy landscape theory was the springboard for development of the "new view'" of protein
folding. This framework is responsible for our growing quantitative understanding of
protein folding mechanism and detailed connections to experiments probing the folding
process. Parallel development of landscape theory in the study of clusters and glasses has
also significantly shaped understanding in this field. The interchange of ideas and
concepts between these two distinct areas has added to the growth of each. However, more
detailed exchanges and forums for discussion and presentation of underlying ideas and
questions will aid continuing development of both areas. The goal of this symposium is to
provide this forum for a discussion of common themes between folding and glasses and
cluster phenomena, to promote the exchange of ideas between these communities, to survey
the advances that have hallmarked each area, and to point to the challenges that remain in
both.

The exciting new advances that have taken place in these areas of investigation would have
been impossible without the integration of the new theoretical and experimental advances
in computational chemistry and physical chemistry that have been successfully applied to
molecular biology and biochemistry. In this symposium, we will integrate the different
groups that have taken part in shaping the successes this interdisciplinary persuit aimed
at a quantitative understanding of the folding problem. The ACS Spring Meeting in 2001 at
San Diego will provide the appropriate forum for this event.